Stochastic Programming by Monte Carlo Simulation Methods

Many stochastic programming problems can be formulated as
problems of optimization of an expected value function. Quite
often the corresponding expected value function cannot be computed
exactly and should be approximated, say by Monte Carlo methods.
In fact, in many interesting examples, Monte Carlo simulation is
the only reasonable way of estimating the expected
value function. It turns out that if the underline probability
distribution is discrete and the approximating problems are
piecewise linear and convex, then with probability
approaching one exponentially fast, with increase of the sample
size, an optimal solution of the Monte Carlo approximation problem
provides an exact optimal solution of the expected
value problem. This gives a theoretical justification for
the following approach to a numerical solution of such problems.
Construct and solve a Monte Carlo approximation problem based on a
relatively small sample. Repeat this procedure several times and validate
calculated
solutions until a stopping criterion is satisfied. The goal of this
project is to develop this method. The method is ideally suited for
parallel computations and some preliminary experiments showed good
results.

Optimization of real world systems almost always involves randomness which
can come in
various conceptual forms such as uncertainty, lack of information, natural
variability of the data, etc. One may think, for example, about optimizing
a manufacturing process when the demand for produced goods is uncertain. It
turns out that solving stochastic optimization problems involving
randomness is much more difficult than solving deterministic problems, both
conceptually and numerically. However, there is obvious practical need for
developing a methodology for dealing with stochastic problems and in recent
years this was a very active area of scientific research. This proposal is
aimed at developing numerical techniques for solving a particular class of
stochastic problems. If successful, it will allow numerical solutions of
considerably larger problems, which in turn may result in bigger variety of
applications.

Alexander Shapiro ,
Tel. 404-8946544; Fax: 404-8942301,
E-mail : [email]
http://www.isye.gatech.edu/~ashapiro
ISyE, Georgia Tech, Atlanta, GA 30332-0205